Engineering Research Equipment Grant: Upgrades and Additions to the Mechanics of Materials Laboratory

The Mechanics of Materials Laboratory, which was founded in 1975, will be upgraded and expanded. The laboratory consists of an MTS axial/torsion servohydraulic mechanical testing system with computer control. The upgrading is for the high-temperature (up to 1000 degrees C) biaxial testing capability and relates to electronics, calibration of biaxial extensometers, and gripping of specimens. The addition of a pressurization system is necessary to perform discriminating tests in support of work on the structure of the evolution law of the kinematic stress tensor in infinite, time-independent plasticity.